PYI: Fast Algorithms for Estimation and Inverse Scattering

Yagle Research efforts focus on the development of a variety of fast algorithms for signal processing applications. These include a geometric approach to phase retrieval, reconstructing a signal of finite support from its Fourier magnitude, fast algorithms for close-to-Toeplitz-plus-Hankel systems of equations with applications to two-sided spectral estimation, and time- frequency methods - wavelets and short-time Fourier transforms - to perform spatially-varying windowing in order to improve the composition of derivatives of non-stationary signals in non- stationary noise.